International Summer School on Data Science for Scattering Reactions

This award will provide partial support for a summer school focused on the theory and phenomenology of relativistic scattering and its practical implementations in data analysis of modern experiments in hadron physics. The organizers propose to bring together experts in hadrons spectroscopy and interested students, post-docs, staff and faculty for a series of lectures and laboratory sessions. The lectures given at the school will be recorded and used to develop online resources that can be used for future training purposes.

This Summer School is intended to address a critical need in the community with respect to the training of a new generation of physicists in advanced scattering theory in response to the specific needs of data analysis at experimental programs at facilities such as the Relativistic Heavy Ion Collider at Brookhaven and the Jefferson National Laboratory. The data sets generated of these facilities are of unprecedented quality and will demand a qualitatively new level of sophistication in analysis never before achieved. As such, the summer school will provide an unique opportunity for scientists in the field of hadronic physics to enhance their training by interacting with recognized experts in this field.